RUI: Microsite Adaptation in Bryophyte Populations

Bryophytes exhibit a wide range of breeding systems which may result in divergent patterns of gene flow. Differences in gene flow may influence the species potential for microsite adaptation. Thus, species of contrasting reproductive mode are included in this study of local differentiation. Patterns of gene flow dispersal of spores, gametes and asexual propagules will be assessed. These studies are based on 3 years of field experiments and laboratory analysis. The proposal offers significant opportunities for research collaboration for undergraduates and provides funds for faculty research at an institution primarily devoted to teaching. The proposed research will enhance our understanding of the role of selection and environmental heterogeneity in the maintenance of genetic diversity, and add to our knowledge of the reproductive ecology of a little-studied, but ubiquitous group of organisms.